An Analytical and Experimental Study of Single and Two-PhaseBearing/Damper Systems Using Signature Analysis and Digital Image Processing

The lubricant film in hydrodynamically lubricated bearings actsas a very important damping element in many types of machinery. The behavior of bearing/damper systems will be studied by bothanalytical and experimental techniques. In the experimental work flow visualization will be used as one of the techniques to determine temperature, pressure, and velocity fields for both single andtwo- phase flow. Results from the two approaches will be closely integrated to develop design data and diagnostic techniques for bearing/damper applications.